CAREER: Rigidity of Group Actions in Ergodic Theory and Geometry

Abstract
Furman

The research component of the project concerns with various aspects of
rigidity in Ergodic theory, Lie groups and Hyperbolic Geometry. The
common theme of the proposed research projects is the analysis of
group actions on spaces endowed with a measurable, topological or
geometrical structure. More specifically, in the context of Ergodic
Theory the proposed problems address the structure and invariants
of ergodic equivalence relations on probability spaces generated by
measurable actions of lattices in Lie groups. In the context of
Hyperbolic geometry the goal is to study negatively curved Riemannian
structures on compact manifolds through coarse-geometric point of
view on the fundamental group.

Generally, the research component of the project is focused on
dynamics and geometry of various systems which have a rich group
of symmetries in the search of special phenomena occurring due to
these symmetries. The educational component of the project is
aimed to contribute to the graduate studies program via special
designed Workshop in Mathematics Seminar and advanced Topic courses.
The goal is to engage students in small scale "self discovery"
projects via sets of challenging problems, to encourage independent
thinking and to expose students to a wide spectrum of current
research.